Research Experiences for Undergraduates in Chemistry at the University of Kentucky

Professor Jeffrey R. Appling and other members of the Chemistry Department of the University of Kentucky are being supported to conduct a Research Experiences for Undergraduates (REU) site in Chemistry. For the period 1990-92, ten (10) undergraduate students will spend eight (8) weeks each summer actively engaged in a variety of research projects. Projects range from determination of the temperature dependence of the thermal motion of anthraquinone to the chemical speciation of oxygen in fossil fuels using derivative activation analysis. Students will be invited to return to Lexington the following spring to present their results at the annual Regional Undergraduate Chemistry Research Poster Competition sponsored by the University of Kentucky Graduate School.